Regional Analysis of Gravity and Topography to Map Variations in Viscosity and dv/d(rho)

9304621 McNutt The PI will analyze gravity, elevation, and seismic velocity data in the wavelength band 6000- 3000 km to constrain the pattern of variations in viscosity , and / , the factor that relates seismic velocity to density. By correlating the variations in and / with the tectonic and volcanic history of the overlying plates, she will learn more about the effects of temperature, mineralogy, stress, and partial melt on the dynamic behavior of the upper mantle. **** Program Director Date